Preparation of Monolayer Films Containing Biomimetic Photovoltaic Molecules and Their Study Using Scanning Probe Techniques

This award is made by the Office of Special Projects in the Chemistry Division under the Materials Synthesis and Processing Initiative. Molecule-sized photovoltaic devices will be designed and synthesized using the principles of natural photosynthesis. These devices will be incorporated into Langmuir-Blodgett films and self-assembled monolayers on metal surfaces, and studied using time-resolved optical techniques. Producing such organized assemblies will overcome low current yields due to inefficient separation of electrical charge and injection of charge across interfaces. A scanning photoelectrochemical microscopy probe will be developed, capable of measuring the photoelectrical response of small regions of the films, or even of individual molecules. %%% Materials based on monolayer films hold substantial promise for the fabrication of electronic devices in general and photovoltaics in particular.